Mind, Brain and Behavior Symposium Series, August 14-18, 1998, San Francisco, CA

This award provides partial support for a Mind, Brain and Behavior Symposium Series at the 1998 annual convention of the American Psychological Association. Organized jointly by APA's Division 6 (Behavioral Neuroscience and Comparative Psychology) and Division 3 (Experimental Psychology), the series is designed as an educational opportunity for students and nonspecialists. The symposia will offer presentations by prominent researchers in the fields of vision, perception, attention, memory, language, decision and choice, learning, hormones and behavior, and ingestive behavior.